Collaborative Research: Analysis and processing of multidimensional data using sparse directional multiscale representations

Labate, DMS-1008900
Guo, DMS-1008907

Following the spectacular success of wavelets in signal and
image processing, several attempts have been made to adapt their
optimal efficiency from the one- to the multi-dimensional
setting. In fact, in spite of their remarkable properties,
wavelets are not very efficient in capturing the intrinsic
geometry of multidimensional phenomena. In recent years,
directional multiscale methods such as the shearlet
representation, introduced by the investigators and their
collaborators, have emerged as the most effective extension of
the wavelet framework to the multidimensional setting. Indeed,
the shearlet representation encompasses the mathematical theory
of affine systems and, to date, is the only method able to
combine optimal sparsity and fast transforms through the power of
multiresolution analysis. The proposed research focuses on
applications of the shearlet approach to a number of challenging
problems of analysis and processing of multidimensional data.
First, the shearlet representation is applied to provide a
precise geometric characterization of the discontinuities of
multivariate functions and distributions. Combining techniques
from harmonic analysis and differential geometry, this provides
the groundwork for the development of improved algorithms for
edge detection and feature extraction. Second, the shearlet
framework is applied to develop a new generation of methods for
the regularized inversion of ill-posed problems. Building on the
ability of shearlets to provide sparse representations of Fourier
integral operators, efficient decompositions for the Radon and
Ray transforms are computed. These are used to develop
algorithms for the Radon inversion from local and incomplete data
and for image deconvolution. Third, a novel mathematical and
computational approach for viewpoint-invariant texture retrieval
is introduced. This is achieved by jointly designing a framework
for feature extraction and similarity measurement in an
appropriate statistical setting, and relies on the unique ability
of shearlets to capture local geometric information.

Over the past several years, there has been a continuously
increasing pressure to handle more efficiently the ever larger
and higher dimensional data sets generated from a wide range
applications such as electronic surveillance, remote sensing, and
medical imaging. The challenge is to rapidly, accurately and
reliably extract the relevant information, so that it can be
efficiently processed, transmitted and stored. The project
focuses on the applications of the shearlet representation -- a
method introduced by the investigators and their collaborators
that provides a unique combination of optimal sparsity and
computational efficiency, within an innovative mathematical and
computational framework. The notion of optimal sparsity, in
particular, implies that this approach has the ability to very
effectively and reliably identify the most relevant features
contained in the data. Specifically, this project leads to
advanced techniques for edge detection, feature extraction, and
texture retrieval from medical, industrial and satellite imagery.
This results in innovative and improved computational algorithms
for the analysis and processing of high-dimensional data and
facilitates technological advances in sensitive applications such
as remote sensing, medical diagnostics, data classification and
electronic surveillance.